Presidential Young Investigation Forum on Environmental Engineering

A conference will be held for Presidential Young Investigators who are receiving support for their research through the Environmental Engineering Program. The conference will be conducted at Duke University on September 25 and 26, 1986. The objective of this conference is to assist the Environmental Engineering Program staff in assessment and planning of its research program and identification of research needs.